Physical & Chemical Factors Influencing Production/Emission of Gaseous Air Pollutants From Wastewater Treatment Systems & the Processing of Treatment-Derived Sludges

9508728 DeLaune The objective of this project is to obtain a better understanding than now exists of the conditions that result in the production of volatile sulfur and phosphorus-containing compounds during domestic wastewater treatment processes and in the processing of sludges derived from the treatment of wastewaters. Sulfurous compounds that are produced during wastewater treatment include hydrogen sulfide, carbonyl sulfide, methanethiol, dimethyl sulfide and carbon disulfide. Phosphorus compounds that are produced during wastewater treatment may also include phosphine, a substance of special pollutional significance because of its toxicity, carcinogenicity and mutagenicity. Results of this research are expected to provide knowledge that can be applied in the operation of existing wastewater treatment plants to reduce or eliminate the production of air pollutants. The knowledge gained through this research is also expected to be utilized in improving engineering design of treatment plants to minimize or avoid the production of air pollutants of toxic and/or nuisance significance.***